Workshop on Computational Geometry and Visualization

The workshop took place November 18-19, 2005 at the University of Pennsylvania. It served as the 15th in the ongoing series of Fall Workshops on Computational Geometry, which originated at Stony Brook in 1991. The workshop on computational geometry is a forum for reporting ongoing state-of-the art research in many areas of theoretical and applied computational geometry. The focus of this particular workshop is on tools and methods for modeling and visualization, areas that lie on the interface between core theoretical methods and application areas like medical informatics, graphics, geographic information systems, and scientific data visualization.

The results of the workshop are being widely disseminated by means of the internet, with talk abstracts and a detailed list of open problems raised. Also a special journal issue that publishes a select sample of the research presented at the workshop.